Elliptic and parabolic equations in geometric analysis

This project will advance research in geometric analysis, a central area of mathematics that studies shapes and spaces using tools from calculus and partial differential equations. The project addresses fundamental questions about how geometric objects behave, how singularities form, and how the global structure can be understood from first principles. These questions lie at the foundation of modern geometry and analysis and have connections to mathematical models arising in physics, materials science, and many other areas where shape, motion, and optimization play an important role. By developing new tools for understanding geometric equations, the project will promote the progress of science and strengthen the mathematical foundations that support long-term advances in pure and applied research. The project will also contribute to education and workforce development through graduate student mentoring, textbook writing, dissemination of research through lectures and conferences, and service to the broader mathematical community. The proposal touches upon that national priority in AI through the writing of a textbook on real analysis that teaches rigorous thinking and the classical one-variable core, while also using that core as a gateway to topics that are central both in current mathematics and its applications including to optimization, AI, and machine learning.

The PI, jointly with Toby Colding, will study fundamental problems in geometric analysis involving elliptic and parabolic partial differential equations, geometric flows, and minimal hypersurfaces. There are three central focal points. The first is on function theory, including gradient estimates and monotonicity formulas for harmonic functions and solutions of the heat equation, with particular attention to the dependence on dimension and the relationship between elliptic and parabolic phenomena. The second focus is on geometric flows, especially mean curvature flow and Ricci flow. The project will investigate the formation and structure of singularities, optimal regularity, uniqueness of blowups, rigidity theorems, and quasi-local behavior. The third focus is on minimal hypersurfaces in higher dimensions, including strong half-space theorems for stable hypersurfaces, estimates for the distance between minimal hypersurfaces, bounds for volume growth in slabs, and stable Bernstein theorems in high dimensions when the hyper surface is restricted to a slab. Together, these directions seek to develop new methods for understanding the interaction between analysis, geometry, and topology, and to resolve basic open problems about the structure and regularity of geometric objects and their evolutions.